Mathematical Sciences: Program Group in Dynamical Systems

This award supports the establishment of the "Midwest Dynamical Systems Program Group." Sixteen mathematicians specializing in dynamical systems and the study of chaos, from Northwestern University, the University of Minnesota, and the University of Cincinnati, will continue their group activities while partially supported by this five-year award. Participant support costs of the Midwest Dynamical Systems Conference, which has run biannually since 1970, will be partially offset. Support for two graduate students, a postdoc, and compatible computer equipment are also included in the award. The mathematicians involved have a long history of close interaction and this award will help strengthen their ties.